Lateral Growth Instabilities During Solid State Interface Reactions: Extension to Ternary Systems

9410454 Hackney The program examines the morphological stability of precipitates which form in the initial stages of precipitation at the interface between dissimilar materials in ternary systems. This program is unique in its focus on the lateral growth instabilities which occur during initial precipitate growth perpendicular to the direction of interdiffusion. A quantitative hypothesis has been developed which predicts how the addition of a third element affects morphological development during the lateral growth of interfacial reaction products. The prediction of the ternary effect is a function of the slope of the solvus with composition in an isothermal section of the ternary phase diagram and the degree of resistance to interdiffusion at the interface between the dissimilar materials. A critical experimental test of this hypothesis is to be carried out by studying precipitate morphology as the composition and interface characteristics are varied in a systematic manner. %%% The results of this grant could impact important processes in technology, such as diffusion bonding of different materials and/or reactions of substrates with thin metal films. ***